FRG Collaborative Research: Homological Mirror Symmetry and its applications

The main aim of this collaborative project is an in-depth study of
the homological mirror symmetry conjecture. Auroux, Katzarkov,
Kontsevich, Orlov and Seidel will lead a concerted effort to formulate
and understand homological mirror symmetry in systematic manner, and
extend it to varieties of general type and to noncommutative varieties.
This will require some foundational work in homological algebra,
noncommutative geometry, and symplectic geometry. Another goal is to
investigate applications of mirror symmetry to classical problems in
algebraic geometry (for example studying the rationality of certain
algebraic varieties) and symplectic topology (in particular, Lagrangian
submanifolds).

From a wider perspective, the project aims to provide a mathematical
counterpart to some recent advances in theoretical physics. The
contribution that mathematics can make is to verify the soundness and
consistency of physical intuition, and to prepare the general ground
on which further development can occur. This is particularly important
in those situations where developments in physics suggest the presence
of deep and complex structures, which are difficult to detect by direct
experiment. At the same time, this effort will make it possible to answer
some purely mathematical (geometric) questions, some of which have been
open for a long time.
The collaborative effort will be carried out through regular meetings
and workshops, and by fostering interaction between leading experts in
the field and younger mathematicians (graduate students and postdocs);
dissemination of knowledge in this rapidly evolving area of mathematics
will be facilitated by regularly held winter and summer schools and
conferences.